Mathematical Sciences: L Functions With Applications to the Oscillator Representation

This research is concerned with the construction of L- functions of automorphic representations and of various applications to problems involving the oscillator representation. Work will be done to generalize the Siegel-Weil formula to the general case. The goal will be to have a general description of the theta correspondence of any automorphic form, especially Eisenstein series. Automorphic L-functions are generating functions of various arithmetic functions and manage to encode much information in their analytic properties. Obtaining general theories of how these types of functions behave is the central focus of this research.